Many-Body Information From Small-System Eigenstates

9981744
Henley

This grant supports projects in many-body theory and in frustrated
antiferromagnets, all having a geometrical flavor. Most importantly,
a blocking renormalization group for general systems, using a
density-matrix truncation, will be tested in one and two dimensions.
A new method will be developed for reducing quantum Hamiltonians,
defined for blocks of a lattice, to noninteracting quasiparticles. Nontrivial
test models include a one-dimensional model with fractionally-charged
excitations, and free fermions in two dimensions. Another many-body
project will study spinless fermions on the square lattice, with (large)
nearest-neighbor repulsion. Its phase diagram is surprisingly ill understood,
considering that it is a sort of toy Hubbard model. The first step will be
analytic study of the charged antiphase stripes which seem to form when
the half-filled system is lightly doped. Finally, we will continue ongoing
studies of (1) Bohr-Sommerfeld quantization of systems of a few spins
(for large spin S); (2) the critical state of the quantum dimer model, in
which an interface representation yields all the low-energy states; and
(3) dilution disorder which is perfect screened in classical Kagome
antiferromagnets and related magnets.
%%%
When the electrons are slowed down by the effects of very strong
electron-electron interactions, they show anomalous properties. High
Tc superconductors and many other materials of current interest share
this property. One part of this project is intended to bridge the gap
existing between purely theoretical frameworks and numerical simulations
of these properties. The idea is to explore what is referred to as a density
matrix renormalization group, limited so far to structures in which the electrons
are confined to move along chains, and generalize it to the case (relevant
to high-Tc's) in which they move within planes. The initial exploratory work
will concentrate on simplified test cases. A separate project, using other
methods, is to study a model of electrons with only one kind of spin; it is
a simplified case of the Hubbard model of high-Tc materials, and is
expected to shed light on the way positive charges arrange themselves into
"stripes" in underdoped high Tc's . Finally, we will continue ongoing studies
of magnets (antiferromagnets, to be exact) with "frustration", meaning that
the geometric arrangement of the atomic magnetic moments puts conflicting
demands on their ordering pattern. All projects in this grant involve the
application of geometry and spatial visualization.
***